Epitaxial CrSi2/Si Heterostructures and Infrared Detectors

This proposal is to investigate the narrow bandgap semiconducting silicide CrSi2. The goals of the work are to characterize electrically metal/CrSi2 contacts and CrSi2/Si heterojunctions, to demonstrate and measure the infrared photoconductive response of CrSi2 thin films, and to determine the potential of CrSi2 films on Si as an infrared detector technology. The proposed research is an experimentally-based investigation of CrSi2 grown as epitaxial thin films on silicon wafer substrates. Growths will be performed with a versatile "Silicon MBE"-type growth system. Device structures will be fabricated for characterization of the infrared photoresponse. These measurements will include the spectral dependence of photoconductivity of the films, and the photoresponse of a Schottky barrier infrared detector made within the CrSi2 film. Strong emphasis will be placed on controlling the films microstructure, and understanding its influence on the observed photoelectronic properties. We intend to demonstrate the growth and properties of an epitaxial semiconducting silicide on a single-crystal substrate. We will characterize two new intrinsic semiconducting infrared detectors which may be monolithically integrated on a silicon microelectronic chip.